U.S.-Mexico Collaborative Research: World-line Investigations in Quantum Field Theory

0122615
Dunne

This US-Mexico award will fund a collaborative project between Dr. Gerald Dunne, of the University of Connecticut, in collaboration with Dr. Christian Shubert of the Universidad Michoacana in Morelia, Mexico. The researchers aim to study the development of powerful new computational techniques in quantum chromodynamics (QCD) and quantum electrodynamics (QED), with the expectation that they will also apply to physically important backgrounds, and to many other situations in quantum field theory and gravitational theories.

The research will involve a blend of analytic and computer-based methods, providing a balanced approach that is accessible to students. The collaboration will bring together expertise on complementary aspects of the proposed research with the partner in Mexico contributing his knowledge of the world-line method, while the US partner contributes his experience with higher-order derivative expansions and symmetry aspects of gauge theories.